Developing Educational Leadership in Computational Science

9911843
HUSKAMP

This national project provides training and support in computational science for 200 high school teachers from 50 schools. Participating teachers receive 180 hours of instruction and up to 18 CEUs as part of this leadership program. The first cadre begins with the SC2000 national high performance computing, and networking conference and the second cadre with the SC2001. Each is followed by support and in-service training events during the school year from a national support structure consisting of the proposing institutions. Included are Summer Institutes for each to refine and extend the computational science skills of the teacher participants. The purpose of this project is to investigate how computational science can best be presented and integrated into the high school curriculum in a variety of school districts and how computational science affects student learning of topics in mathematics, chemistry, biochemistry, environmental science and physics.

This project builds on previous work and leverages the efforts of the proposing institution and its partners, who have extensive investments in computational science. The partners include the Krell Institute, the National Center for Atmospheric Research, the National Center for Supercomputing Applications, the Ohio Supercomputer Center, the Shodor Education Foundation, and the University of Alabama, as well as the sponsoring professional societies of the SC conferences, the Association for Computing Machinery and the IEEE Computer Society.